FDT-BioTech: Credible Foundations for Composable Immune System Digital Twins

Modern medicine increasingly relies on computational models called digital twins to predict how patients will respond to therapies, how medical devices will perform, and how diseases will progress. These models hold promise for making healthcare more personalized and reducing risks in developing new treatments. However, most existing digital twins are built for one specific application and lack the mathematical rigor needed to verify that their predictions can be trusted, especially when clinical data are limited. This gap creates a credibility problem that prevents digital twins from fulfilling their potential in medical decision-making. This project develops foundational mathematical and computational infrastructure to make biomedical digital twins credible, composable across systems, and able to transfer knowledge from one biological context to another. The work builds tools that allow scientists to assemble digital twins from verified components, transfer knowledge across related biological systems, and produce clear documentation of how reliable the resulting predictions are. Because these tools address foundational principles rather than a single application, they can support digital twin development across a wide range of medical conditions and technologies. The project demonstrates the infrastructure using the human immune system as a proving ground, working with data from vaccination and acute infection contexts. Open-source software, benchmark test cases, and a regulatory credibility documentation template are publicly released to support broad adoption. The project provides research training opportunities for graduate students and postdoctoral scholars at the intersection of mathematical modeling, biomedical science, and regulatory science.

This project develops mathematical and computational infrastructure for constructing credible biomedical digital twins under sparse clinical data, addressing three foundational challenges in the current digital twin ecosystem: principled composition of mechanistic modules with verified properties, transfer of knowledge across related biological contexts with quantified credibility, and regulatory-grade assessment of prediction reliability. Two integrated aims are developed. Aim 1 establishes an infrastructure for assembling digital twins from modular components with formal verification of mathematical properties essential for credibility (parameter estimability, dynamical soundness, appropriate resolution for available data), and produces a regulatory-aligned credibility documentation framework. Aim 2 develops a mechanistically informed hierarchy for determining which model components can be transferred across biological contexts, with quantitative criteria distinguishing knowledge that generalizes from knowledge that requires context-specific re-estimation, and complementary computational methods for scalable inference. The infrastructure is formalism-agnostic and demonstrated on two structurally distinct immune contexts. Deliverables include an open-source Python reference implementation, benchmark test cases, a regulatory credibility documentation template, and peer-reviewed publications. The work addresses core FDT-BioTech themes of computational representations, verification, validation, and uncertainty quantification, and transferability, generalizability, and robustness.

This project is jointly supported by the National Institutes of Health through the Office of Data Science Strategy and the National Institute of Allergy and Infectious Diseases.